Research Experiences for Undergraduates in Chemistry at the University of Puerto Rico

This Chemistry Division award supports the continuation of a Research Experiences for Undergraduates site at the Department of Chemistry at the University of Puerto Rico. The Program Director is Ana Guadalupe. She is assisted by 15 faculty researchers. For each of the three summers (2001-2003)10 students will be involved in the 8-week program.The program emphasizes "hands-on experience in modern chemical instrumentation." The instrumentation includes an NMR spectrometer, mass spectrometer, FTIR spectrometer and X-ray diffractometer. The program provides a number of support systems including instrumentation workshops and seminars on graduate studies and ethics in science. Each summer program terminates with the students presenting their results at a symposium.